Thermal Maturity and Fluid-Rock Interactions Within Franciscan and Related Rocks: A Test of the Slab-Window Hypothesis

Theoretical models have been developed to predict thermal structure of accretionary prisms, using boundary conditions largely determined from marine investigations of modern examples. It is unclear if clements of the primary thermal regime can be recognized in ancient accreted sediments. The aim of this research is to determine whether the late Mesozoic Franciscan Complex of California retains a primary accretionary thermal structure or whether the thermal structure has been overprinted due to the passage of the Mendocino triple junction or to other heating events. A program of vitrinite reflectance, X-ray diffraction of clays, fluid inclusion geothermometry, stable isotopes and fission-track measurements will be integrated with the results of detailed field mapping of mesoscopic structural fabrics and vein geometries. These data will provide important constraints on theoretical models for the thermal evolution of accretionary complexes in general.